TX BRIDGE (Texans Building Robust, Innovative & Diverse Graduate Education)

TX BRIDGE, led by UT Arlington, is a new alliance of 7 University of Texas System components--UT Arlington (UTA), UT Brownsville (UTB), UT Dallas (UTD), UT Pan American (UTPA), UT Permian Basin (UTPB), UT San Antonio (UTSA), UT Tyler (UTT)--and Texas Southern University (TSU). The institutions united because of their diversity and synergies in location, size, strengths, and student demographics. Each member of the alliance has strong outreach, recruiting and support programs that enable underrepresented minority (URM) students to succeed in campuses where they feel welcome and included. UTA, UTD, and UTSA all have extensive and successful experience in STEM and STEM URM doctoral education. Members of the alliance are also governed by similar academic and administrative policies and procedures that minimize institutional barriers to coordinating cross-university programming. Thus they have an excellent foundation on which to build a program that will attain AGEP goals. The proposed one-year planning process will create the infrastructure for an innovative AGEP program that 1) encourages URM interest in graduate STEM education; 2) integrates mentoring, academic and professional support across baccalaureate, master's, doctoral and postdoctoral training; 3) makes research and mentoring opportunities at doctoral institutions available to master's students studying at comprehensive universities; 4) creates a cost and time efficient bridge for those master's students to enter doctoral studies at research-high activity universities and 5) provides postdoctoral and visiting assistant professor positions that prepare students for faculty positions. They propose to achieve this by focusing on development of a broad and responsive program management structure, cross-institution coordination of curricula, and credit-earning summer research opportunities. They will also focus on expanding support of student success by creating mechanisms for faculty from different institutions to jointly mentor and advise students and by developing and disseminating other innovative outreach, admissions, academic, and professional and career programming. To achieve these ends, best practices will be identified through consultation with programs that address issues of URM STEM graduate education successfully. An external evaluator will be hired to help identify barriers to access and success. Critical input from faculty, administrators and external constituencies will assure that the program is responsive to each university’s local academic and professional concerns. These groups will shape coordinated admission procedures, curricular requirements and research opportunities across TX BRIDGE institutions, creating a seamless path leading to doctoral study and entry into the professoriate. Outreach, program growth and program quality enhancement are difficult to attain especially in challenging state and national economic climates. The proposed planning will lay the groundwork for a full AGEP proposal that will coordinate efforts and pool resources to bring more URMs into the professoriate while providing an extremely cost-effective approach to improving the quality of STEM programs in the TX BRIDGE alliance.
Intellectual Merit: TX BRIDGE institutions united because of their diversity and synergies in location, size, strengths, student demographics and their similarity in academic and administrative policies that minimize difficulties coordinating inter-institutional activities. Project leadership has extensive experience working collaboratively on matters related to graduate education in Texas. Further, the participating institutions are committed to improving URM participation in all levels of higher education and have committed considerable resources to help improve the quality of research activity to serve all Texans. These factors provide an excellent foundation for an AGEP program. Key planning steps and objectives have been identified for building a sustainable program that will encourage more URMs to consider advanced STEM degrees, prepare them to succeed in their studies, and prepare them to enter the professoriate. Institutional, programmatic and social barriers to URM student admission, retention and completion will be identified by external assessment and consultation and addressed. Data collected during this process will provide a baseline for assessing the impact of program activities when the full program is implemented. Faculty and administrative participation and enthusiasm are critical to sustainable success. Their planned involvement in the design and implementation of the program and the program's ability to provide new and exciting professional opportunities for participants will help assure their long-term commitment.
Broader Impacts: Outreach, program growth and program quality enhancement are challenging under the best economic conditions. The proposed planning will create an alliance that increases the number of URM STEM students who graduate in a timely fashion, transition to doctoral studies, and go on to successful careers in the professoriate. TX BRIDGE presents a new model for inter-institutional collaboration at the graduate level for building a scalable bridge infrastructure in which many universities and individual departments may participate. Through coordinated efforts and pooled resources that expand outreach, promote growth, and improve program quality for all of its members, TX BRIDGE also provides a model for other universities seeking to strengthen and improve the quality of their STEM doctoral and master's programs in a cost-effective manner.